Creation of a Computer-Based Laboratory for Teaching Undergraduate Psychology

The project involves the development of a computer-based laboratory to be used for instruction in cognitive and experimental psychology courses. The laboratory will expose students to the many methods employed and the important phenomena studied in the traditionally experimental areas of psychology, including cognitive, learning, and methodology. Furthermore, the opportunities to become familiar with the use of the computer as an integral part of their course work will equip students with the skills necessary to participate more fully in the research process.